Synthesis, Structures and Chemistry

In this renewal of a three-year U.S.-Yugoslav cooperative research project in flourine chemistry between Boris Zemva, Josef Stefan Institute, and Neil Bartlett, University of California, Berkeley, the investigators propose to further their general method for the synthesis of polymeric binary flourides (metal compounds containing flouride) developed during the prior joint research program. Through these studies, the investigators will apply their methodology and characterize and prepare binary flourides. The Yugoslav group is acknowledged by flourine chemists worldwide for their first-class research and the U.S. investigator, who enjoys an illustrious career, is noted for his initial discovery of nobel gas chemistry. Their joint research and complementary expertise and interests will yield new insights into the structure of binary flourine compounds, which could be applied, for example, to the area of hazardous waste treatment. This grant allows them to continue a highly productive 17-year collaboration. U.S.-Yugoslav Joint Board on Cooperation in Science and Technology is supported through a joint fund consisting of matching contriubutions from the governments of the United States and Yugoslavia. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. Grants are made to the principal scientific institution in Yugoslavia, but include dollar funds for U.S. scientists' travel to Yugoslavia and for Yugoslav scientists' living expenses in the U.S.